Mathematical Sciences: 1992 Southeast Dynamical Systems Conference; April 3-5, 1992, Raleigh, NC

The field of dynamical systems studies qualitative and measure theoretic properties of systems that evolve in time, including iterated mappings, ordinary differential equations, and partial differential equations. Various ideas in dynamical systems, such as bifurcation, chaos, and strange attractors, have applications in a variety of scientific areas. This project will support the 1992 Southeast Dynamical Systems Conference to be held from April 3-5, 1992 at North Carolina State University. In the southeast, there are active dynamical systems groups at about a dozen universities and for the past three years the Southeast Dynamical Systems Conference has promoted exchanges of ideas among these groups. The conference will include nine invited lectures and will promote interaction among senior researchers and recent doctoral recipients and graduate students.